Travel: NSF Student Travel Grant for 2026 ACM SIGSOFT International Symposium on Software Testing and Analysis (ISSTA)

This grant provides funds to support students for travel to the ACM SIGSOFT International Symposium on Software Testing and Analysis (ISSTA), which will take place in Oakland, CA in October 2026. ISSTA is one of the premier conferences in the field of Software Engineering. A large part of the technical program is devoted to research on using artificial intelligence (AI) techniques to support software development, as well as using software engineering techniques to support AI-based software systems. The grant will provide travel and registration support for US-based students.

The ISSTA 2026 conference also features the ACM student Research Competition. Conference attendance is important for the technical exchange of information and research conversations/collaborations made possible by the conference, as well as advances in the field made possible by these interactions. The conference provides opportunities for education, training and mentoring to build the next generation of researchers and practitioners in the field of software engineering. The international nature of this conference helps develop a globally-aware workforce of research and educators within the US and helps build the community of researchers in the field of Software Engineering.